A Video-Based Motion Analysis Facility for Neuroethological Research on Insects

The aim of this proposal is to establish a multi-user instrumentation facility for the fine-scale analysis of video-recorded orientation and locomotory movements of insects, and the simultaneously recorded underlying electrical activity of groups of neurons and muscles. The entire facility will comprise the Peak Performance Technologies Inc. 2D/3D software, two 486 desk-top computers, color and low-light video recording equipment (for recording behavior in 3 dimensions), the Peak Performance Technologies Inc. automatic point tracking software, and a video recorder and camera which has been modified by Peak Performance Technologies Inc. for high-speed (120 frames/sec) recording. Simultaneously recorded electrophysiological data will be precisely synchronized with the video record using the Peak Performance Technologies Inc. electronic synchronization unit. The electrophysiological data will be played back with an 8-channel Vetter PCM data recorder, and analyzed using Run Technologies Inc. Data Pac II wave form analysis software. The ultimate goal of these neuroethological studies is to understand the sensorimotor mechanisms underlying complex movement patterns. These studies, using insects as model organisms, will specifically address questions of, how the development of circuits of identified neurons affect behavior, associative learning and memory, specific brain structures and their role in spatial learning and memory, integration of multimodal sensory inputs and control of motor output, and plant-insect interactions and their role in crop protection. The major users of this equipment facility will be performing fine-scaled analyses of the movements of animals with respect to their environments, and the movements of the segments of the body and limbs with respect to each other, in both 2 and 3 dimensions. These projects involve the study of body postures and movements, and the neural and muscular activity underlying them in: (1) moths flying freely (closed- l oop conditions) in a laboratory wind tunnel and natural field conditions, (2) in moths during tethered flight open-loop conditions activated by various sensory stimuli (pulse trains of pheromone compounds, visual flow fields, mechanosensory inputs) or endogenously, (3) and walking in different successive developmental stages (e.g., caterpillars and moths) of the moth Manduca sexta. Projects proposed by minor users include: (1) quantification of the movement patterns of freely walking insects as they interact with the chemical environment on the surfaces of leaves, (2) high-speed video analysis correlating the effects of changes in the intracellularly recorded firing patterns of identified neurons on the head and neck movements of flies in tethered flight, (3) orientation and movement of body segments during visually guided learning in freely walking animals, and its associated neural activity, (4) analysis of movement patterns used by plant-feeding insects to locate their host plant, and the strategies utilized by parasitic insects to locate their insect herbivore prey. An additional use, yet to be explored, may be to analyze the growth and development of single neurons growing in culture, video recorded through a compound microscope. The most important components of this facility are the Peak Performance Technologies Inc. motion analysis software and the video and computer equipment that interact with this software. This motion analysis system has been designed to perform sophisticated analysis of animals moving with respect to their environment and of separate segments of the body or limbs with respect to each other. The motion analysis software is also designed to interact with the electrophysiological analysis software produced by Run Technologies Inc., enabling the researchers to analyze the behavior of interest and easily and precisely correlate it with appropriately synchronized recordings from the muscles and nerves involved in the generation and contro l of that behavior. Our current video recording and analysis capabilities does not provide the level of spatial and temporal resolution necessary to test existing hypotheses or formulate and test new ones. Without the interactive components of the Peak system, the work proposed can only be performed with a prohibitively large investment in time and investigator effort. A-1